Project CATALYST

CATALYST is a three year faculty development program at San Francisco State University (SFSU) and the University of Rhode Island (URI) for high school teachers of science, mathematics, and computer science. It will: 1. Train 60 high school science, mathematics and computer science teachers how to use interactive technologies in the classroom. This 1990-91 academic year component will stress hypermedia, intelligent tutoring systems, repurposed videodiscs, microworlds, coaches, inspectable simulations, computer animation, and automated data collection and analysis. The teachers will learn how to: o Teach students how to solve scientific problems using the heuristic approach of Polya. o Manage CAI and video/digital audio projects (including writing, producing, implementing, and evaluating them). o Use the computer to write multimedia programs. o Deal with the different learning styles of students. o Recognize science preconceptions and help students to overcome them. o Evaluate software and interactive products. o Create instructional material with such commonly available tools and microcomputers and workstations. The teachers will finish the program's first phase with projects they design and implement themselves. 2. Select 30 of the original participants to develop indepth projects. Fifteen will attend SFSU and fifteen URI for six week workshops during the summers of 1991 and 1992. They will also work at the Universities on a 20 to 50 percent release time basis during the 1991-92 academic year. 3. Evaluate how well the teacher developed materials work with large numbers of students. It will also evaluate additional material that workers at Tufts University, SFSU, URI and their collaborators have developed in the areas of physics, chemistry, astronomy and mathematics. 4. Develop a series of probes and sensors along with computer analysis tools to measure such phenomena as heat, temperature, electromotive force, light, oscillations, and sound. The teachers will use these tools to produce a large number of laboratory experiments. The experiments, teacher notes, and follow-up materials will be published in a manual at the end of the program. 5. Distribute donated computer equipment and other hardware, when appropriate, to participating school districts. The microcomputers and workstations used in CATALYST will be the most modern and will come from major vendors. To be sure teaching methods are designed that accommodate the wide range of ability and preparation among students, project directors will rely on such curriculum ideas as those from the AAAS- sponsored Project 2061, NSTA, and the NCTM Commission on Standards for School Mathematics. The major goals are to give students a deep understanding of content, an ability to solve problems in mathematics and science, and to enable them to become interested, active learners instead of passive consumers of knowledge. CATALYST relies on resources from several institutions. These include intelligent problem solving tutors from URI; microworlds, inspectable simulations, repurposed videodisc and coaches from SFSU; and microcomputer based laboratory experiments from Tufts. The total grant request from NSF is $1,035,500. The institutions and their corporate sponsors have already committed $3,250,000 in matching resources and hardware, equal to 319% of the NSF award.